Affine Manifolds and Mirror Symmetry

M. Gross plans to study the geometry of mirror symmetry for Calabi-Yau
manifolds. This will be done from the perspective of an algebro-geometric
version of the Strominger-Yau-Zaslow conjecture introduced by M. Gross
and B. Siebert. Associated to certain sorts of large complex structure limit
degenerations of Calabi-Yau manifolds one can define a dual intersection
complex, which is an affine manifold with singularities. Conversely,
given an affine manifold with singularities, it is possible to build
the degenerate fibre of such a degeneration, along with the structure
of a log scheme. Gross first plans to complete
the correspondence between affine manifolds with singularities
and large complex structure limit degenerations of Calabi-Yau varieties
by showing that these log schemes can be smoothed. Furthermore, Gross
plans to compute invariants of these smoothings in terms of structures
on the affine manifolds. One expects Hodge numbers, and more importantly,
variations of Hodge structure, can be calculated directly from computations
on the affine manifold. The ultimate goal will be to compare these results
with calculations of Gromov-Witten invariants for the mirror, thereby
eventually providing an explanation for mirror symmetry.

The work proposed by M. Gross lies at the intersection of string theory
and geometry. String theory replaces the traditional notion of
the point particle with a small loop of string, moving through space-time.
To make string theory compatible with quantum mechanics, space-time must
be ten-dimensional. Since space-time appears four-dimensional, one expects
six of these dimensions to be a very small `curled up' geometric object.
These geometric objects are called Calabi-Yau manifolds. In the early
1990s, string theorists proposed a remarkable association between
completely different Calabi-Yau manifolds: certain calculations extremely
difficult to perform on one Calabi-Yau manifold could be completed
by performing completely different, and much easier, calculations on
a different Calabi-Yau manifold. This discovery was known as mirror symmetry.
Since this time, many geometers have been trying to understand
the mathematics behind this miraculous observation. The work of M. Gross
hopes to give mathematical insight and explanation for the phenomenon
of mirror symmetry.